DISSERTATION RESEARCH: Evolution of SINES and their Phylogenetic Utility in Carnivora

Recent genome-sequencing projects have unveiled a new variety of molecular markers for potential use in phylogenetic studies of divergent species. Short interspersed nuclear elements (SINEs) are a type of molecular marker with the potential to clarify relationships between populations and specie,s while providing insight into genome composition and function. The proposed research explores the distribution of a specific class of SINEs within the cat family Felidae. Specifically, modern genomic techniques will be used to uncover species-specific SINE insertion sites in non-domestic felid species. Relative genomic positions of isolated segments will be determined via alignment to the genome of the domestic cat. These methods will identify informative SINE insertion sites that may be used in future phylogenetic, evolutionary, and conservation studies.

This project will synthesize data from recent whole genome sequencing efforts to extract genetic information useful to a variety of research areas. Results from the study will also be essential to the development of conservation strategies by revealing molecular markers that can be used for rapid identification of exotic felid species. In addition, this project will provide research opportunities to undergraduate students under the leadership of a PhD candidate, while fostering collaborations between academic and government laboratories.